SGER: COLLABORATIVE RESEARCH: Biogeochemistry of Individual Proteins of Ancient and Modern Gastropods: A Molecular Level Approach to the Study of Diagenesis

Organic material isolated from fossils provides a potential substrate for determining paleoecological and taxonomic relationships based on isotopic and amino acid data. Present criteria for evaluating indigeneity has focused on a bulk organic fraction derived from fossils and includes analysis of amino acid abundances and enantiomers and comparison of the 13C and 15N values of the fossil material to those of the modern organism. These criteria incorporate two assumptions that 1) the bulk organic material is homogeneous and 2) the relative abundance of amino acids and the isotopic compositions are comparable to a modern analog. The difficulties with these assumptions are that the bulk material is not homogeneous but rather composed of several different proteins and the organic matrix of fossils may be altered. If the diagenetic product obtained from a fossil is a consequence of differential loss or retention of specific protein fractions then the geochemical characteristics and interpretation of the data are entirely a function of the protein composition of the organic matrix. Therefore, more precise and new methods are needed to assess the effects of diagenesis and derive criteria for indigeneity. A better understanding of changes in the organic fraction of fossil material over time must include 1) an evaluation of variation in the relative contributions of each of the protein fractions over time, 2) an understanding of the alterations that occur in the biochemical characteristics of individual protein fractions during diagenesis and 3) new molecular level approaches, such as evaluation of the 13C of individual amino acid enantiomers (see Justification of explanation). We anticipate that the proposed research will provide unique information on diagenesis through molecular level analyses on individual proteins.